NYI: Theory and Implementation of Declarative Database Systems

This project covers theoretical and implementation work on both deductive databases and on a declarative object-oriented database language. In the area of deductive databases, foundational work on the semantics and optimization of rules with recursive aggregation and negation is being pursed. Efficient techniques for incremental computation of aggregation functions are being developed. Syntactically checkable stratification conditions that are more general than past proposal are also being investigated. In the area of declarative object-oriented databases, a language called Noodle has been designed, and is being implemented as part of the SWORD/Oda database systems. Once implemented, the system will be tested on realistic applications.